Development of a Core Facility for DNA Sequencing

This Academic Research Infrastructure equipment proposal requests funds to establish a Core Facility for DNA sequencing by purchasing (1) an Applied Biosystems model 373 automated DNA sequencer, (2) GeneAmp PCR System 9600 thermal cycler, (3) Tektronix Phaser 200e printer, (d~) Genescan 672 software kit, (5) Genotyper software and (6) Sequence Navigator Software (7) Power Mac 8100. The Applied Biosvstems model 373 DNA sequence is a state-of-the-art instrument for many primer based DNA analyses including DNA sequencing, sizing and quantitation. The machine will be used by research faculty at the University of Alaska Fairbanks and will augment productivity of our molecular genetics sequencing group in addition to graduate and undergraduate teaching. The molecular genetics sequencing group (MGS) has seven core and seven affiliate faculty. All projects within the MGS use some form of primer based DNA analysis. The development of a Core Facility for DNA Sequencing will have a major impact on research productivity. Because manual sequencing of DNA is highly labor intensive, molecular biologists, who use DNA sequencing, have generally limited themselves to relatively few ongoing research projects and even fewer collaborations with colleagues whose important biological questions might be elucidated by sequence analyses. Development of a Core Facility for DNA Sequencing can only reduce the labor expenditure of technician time and thus allow for larger numbers of cross-disciplinary and international collaborative projects. The MGS core faculty include three molecular systematizes and four molecular biologists. The seven affiliate faculty members have a wide range of research interests including physiology, wildlife biology and marine sciences. The common denominators among all members of the MGS faculty is that they work on biological research projects in the Arctic or Subarctic and acquisition of DNA sequence or size information is a significant component of their research programs. Research excellence is evident from the past and ongoing research activities of the individual investigators within the MGS group. Development of the Core Facility for DNA Sequencing will foster continued growth and research excellence by enhancing existing research projects and providing additional opportunities for new projects. Below we describe the use, application, and overall impact of a Core Facility for DNA Sequencing.